CISE Research Instrumentation: Advanced Computer Graphics Equipment for Rendering and Visualization

A graphics computing facility including an FDDI interface, high-resolution color graphics monitor and framebuffer, stereoscopic viewing glasses, and 3D interface equipment shall be acquired to support research efforts in computer and information science and engineering. This, and AVS scientific visualization software will be used for rendering, visualization, and animation research projects in mathematics, physics, virtual reality, scientific computation, discrete and combinatorial structures, and parallel program performance.